Exploratory Research on Large Format Film Animation

9901567
Martin

Big Ideas Entertainment, Inc. is producing a coherent test sequence, 30-seconds to 1-minute in length, that combines character animation with live action footage. The purpose is to assess the different methods of animation and compositing to produce an appropriate "marriage" between animation and live action footage, including testing the SANDDE hand-drawn animation system vs. traditional cel animation. The exploratory research also will test CGI processing (digital compositing) vs. optical printing.

The footage to be produced, though short, will be developed with science content, a treatment, shooting script, and storyboard. Live action footage will be selected, animation characters designed, and one minute of animation and live action footage will be produced. The resulting footage will be evaluated by screening and focus group interviews with an audience of children and adults, as well as being assessed by professionals in the large-format film field.